CCLI-EMD: An Interdisciplinary Course for Undergraduates on Protecting Information

Mathematical Sciences (21) A course for undergraduates on "protecting information" is being developed that includes cryptography and error correction. The course is multidiscplinary, integrating topics from mathematics, physics, and computer science. The course also connects abstract concepts in these disciplines with familiar technology such as CD players and fax machines. Recent research results in quantum cryptography and quantum computation is being introduced in the course. Pedagogical approaches available though information technology are used in the course.